A Collaborative Approach to Improving Science Instruction Through Technology: Grades 7-9

The New York City Board of Education has requested support to mount a project with two broad educational goals: (a) to improve problem solving and communication skills in 7th through 9th grade students and (b) to improve the skills of preservice and inservice teachers in integrating technology into the curriculum. Activities intended to lead to the realization of these goals include: (a) development of microcomputer based laboratory and teleconferencing in 10 area schools; (b) site visits, and teleconferences for teacher enhancement; (c) training to 5 college classes in use of project materials and involvement in teleconferences with the schools sites; (d) a conference to develop and implement an action plan for the improvement of science instruction at all grade levels during the third year.